Postdoctoral Research Fellowships in Chemistry

9403105 Miller Dr. Scott J. Miller has been awarded an NSF Postdoctoral Research Fellowship in Chemistry. Dr. Miller's doctoral degree was from Harvard University under the supervision of Professor David Evans. Dr. Miller will continue research at the California Institute of Technology under the supervision of Professor Robert Grubbs. Dr. Miller's postdoctoral fellowship will enhance his synthetic organic skills by providing him with experience in organometallic catalysis as applied to olefin metathesis. Longer term, he will apply his organometallic training to the catalytic asymmetric synthesis of alpha-amino acids based on the use of chiral rhodium carbonyl complexes. The Postdoctoral Research Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph.D.s and attract them into meaningful careers in contemporary chemical research and teaching. ***